ARFMP: Renovation of Oceanography Laboratories

This Academic Research Facilities Modernization Program (ARFMP) award from the Research Facilities Office provides funds to Oregon State University for the renovation and repair of Burt Hall which houses that institution's oceanographic research and research training activities. This building was constructed in 1965 and has not been renovated since that time. The ARFMP grant of $125,000 and $125,000 provided by the grantee as cost sharing will be used to modernize these research and research training facilities. This project will address the need to improve the current research infrastructure both in terms of health and safety and of the quality and quantity of the research and research training that can be conducted by replacing fume hoods, substandard sinks, and laboratory benches, and correcting heating and ventilation problems. This award contributes to the infrastructure of science by providing an improved environment for the conduct of biological/chemical oceanographic research and for the training of quality undergraduate and graduate students under conditions freed from the serious extant environmental hazards.